Characterization of High-Nuclearity Metal Clusters by 252Cf-PDMS

This Career Advancement project will focus on a relatively new area of research for Dr. Catherine McNeal. Preliminary studies have established that Californium-252-plasma desorption mass spectrometry (Cf-252 PDMS)is a valuable experimental method to characterize large metal clusters. A variety of large anionic platinum carbonyl clusters and cationic gold and mixed metal gold and gold supraclusters have been investigated by this experimental approach. This project will focus on the development of Cf-252 PDMS as a reliable and accurate method to characterize large metal clusters and to use this approach to unambiguously characterize intermediates and products in novel inorganic syntheses. The first step will be to prove that the Cf-252 PDMS spectrum is an accurate representation of solution and sample composition for a variety of clusters. Oligomers containing as many as 20 units and over 500 platinum atoms have been detected, and the origin of such clusters will be determined. These clusters exhibit redox behaviour on exposure to silica. Cf-252 PDMS will be used to determine whether these processes involve changes in cluster nuclearity or cluster charge. An understanding of fragmentation patterns is essential in order to distinguisn fragment ions from sample components. This project will provide an unambiguous measurement of the stoichiometry of large supraclusters from studies on smaller clusters of known composition and structure. %%% This Career Advancement Award will support activities that will enhance Dr. Catherine McNeal's research career potential. New skills which are crucial to the change in direction of her research activities will be developed. Furthermore, this project is strongly interactive with the research of other investigators who will benefit from the results as well.